Modern Gas Chromatography for an Instrument-Oriented Chemistry Program

A computer controlled capillary gas chromatograph is being used by the Chemistry Department at Mississippi College for undergraduate instruction in organic, analytical, instrumental, and physical chemistry. Use of this instrumentation is correlated with that of other computer interfaced analytical instrumentation available in the department. There is a central focus on instruction in the theoretical and practical aspects of modern separation science.